Research Initiation Award: Dynamic Program Slicing

9308895 Korel This project will investigate dynamic program slicing and its application in the debugging of large programs. Slicing has been shown to be useful in program debugging. The major idea behind slicing is to identify that part of the program that might potentially contain the fault. It has been shown that by taking a particular program execution into account, dynamic slicing may significantly reduce the size of the slice as compared to static slicing. As a result, dynamic slicing is better suited for the purpose of debugging than static slicing. Our objective in this project is to continue our earlier research on dynamic slicing and algorithmic debugging. The investigation will involve constructing a dynamic slicing environment, extending the theory of dynamic slicing, development of new methods of dynamic slice derivation, and evaluating the effectiveness of dynamic slicing in the process of debugging of large programs. ***